Collaborative Research: Fast Hardware Encryption

Abstract:

High speed, high volume cryptographic systems will
form the basis for the security of video, wireless,
and computer communications of the next decade. This
research involves the design and development of such
systems, especially that of hardware-based stream
ciphers. High speed hardware-based stream ciphers can
be easily manufactured, programmed, and implemented.
They can be used to encrypt data (such as voice or
video) in real time and are used as embedded
components in cellular telephones, GPS satellites,
radar, and radio systems. Most stream ciphers,
however, have been found to be vulnerable to various
cryptoanalytic attacks. This research involves the
development and analysis of new architectures for
sequence generators which have all the above
advantages but which are much more secure than
traditional architectures. They are also potentially
useful for a variety of other applications such as
sonar systems and Monte Carlo integration.

Linear feedback shift registers have proven especially
useful for the generation of pseudorandom sequences
for high speed communications. They have been
intensively studied for over forty years and their
usefulness does not appear to have any end in sight.
Recently a fundamentally new architecture for feedback
shift registers was discovered, the so-called
feedback-with-carry shift register or FCSR. This
architecture shares all the advantages of the linear
feedback architecture such as high speed and ease of
implementation and significantly expands the class of
easily generated and useful sequences. This research
involves a number of implementation issues for the new
architecture including (1) the development of parallel
circuitry for high speed generation of pseudorandom
sequences, (2) the design of combiners and feedforward
functions to increase the security of FCSR sequences,
(3) the design of clock-controlled FCSR circuits, and
(4) the analysis of the cryptographic security of the
FCSR sequences which are generated in this way.